Visualization Technologies in Environmental Curricula (VTEC)

9354599 Bereman The Visualization Technologies in Environmental Curricula (VTEC) Project is a large scale partnership effort among: Sigma Xi, the Scientific Research Society; North Carolina State University; Duke University; the University of North Carolina at Chapel Hill; The North Carolina Supercomputing Center, North Carolina Central University, The North Carolina System of Community Colleges; and industry, government, faculty and student consultants. VTEC is a two-year project to develop, demonstrate and evaluate: An interdisciplinary, problem-oriented, team-based environmental case study development strategy involving faculty, undergraduate students, and consultants from industry, government, and supercomputing centers. Environmental curriculum case studies and instructional materials which effectively integrate the power of computer networking and visualization technology in enhancing understanding of scientific concepts and their interrelationship with other disciplines in the solution of complex environmental issues. These visualization-- enhanced case studies are intended to increase environmental and scientific literacy and to improve undergraduate student attitudes toward science and technology careers, particularly among women and underrepresented minorities. Comprehensive, project-driven computer visualization and networking skills development at the N.C. Supercomputing Center to enable excellence in curriculum development for collaborators from participating universities and community colleges. ***